Complex Analysis and Geometry

Abstract NSF Proposal DMS-0104047

Speaking more technically, the proposal aims to treat four research
lines in complex geometry and analysis. We are studying the Grauert
tube construction for its rigidity and uniquesness properties for
large (maximal) radius or domain, and examining whether this point of
view adds to old questions in representation theory and automorphic forms.
Second, we will study a Kaehler-Einstein version of Min-Oo's rigidity
theorem which we conjecture to hold. We will continue work with
X. Gong on Levi flat hypersurfaces with singularities, especially
algebraic ones with isolated singularities. Their importance is
suggested by recent work of Siu and others proving the conjecture of
Camacho on the non-existence of smooth, Levi-flat hypersurfaces in
the complex projective plane. Finally we propose to study the rigidity
of special classes of Schubert cycles on flag manifolds, following
upon the work of the PI's former student M. Walters and,
independently, R. Bryant.

The proposal addresses several questions in complex analysis and
geometry. Most people are familiar with Descartes' analytic geometry
from high school: in most respects, this line of investigation is the
modern descendent of those early ideas. We will study the relationship
between a geometric locus, sometimes defined by equations as in
Descartes' original case, and its analytic properties, those
properties influenced by the calculus of Newton and Leibniz. In
particular we study a complexification of geometric locus, that is, we
add "imaginary points" to the geometry, related to the imaginary unit
"i", and study the influence of the imaginary points on the real
points and their geometry. Another portion of the project seeks to
understand the asymptotic, or long range properties of special metric
geometries related to the Einstein equations. It is well known that
both of these properties can be influential in physical applications,
and there is recent work to lead one to hope that both this
complexification construction and the asymptotics of Einstein metrics
can be used to understand parts of the so-called Maldacena
correspondence in theoretical physics.